Minority Undergraduates in Marine Science - Communication and Exposure through MIMSA

It is recognized nationally that major steps must be taken to attract minority students to scientific careers. This is especially true for the marine sciences. A program to increase the participation of minority undergraduates in marine science will be initiated. The specific activities will include: 1) setting up a planning office for the newly formed Minority Institution Marine Science Association (MIMSA); 2) establishing a communication network for use by members of the Southern Association of Marine Labs (SAML) and MIMSA; 3) gathering and disseminating information on minority undergraduates interested in marine science and activities at marine science institutions that would be of interest to these students and HMCU faculty members; 4) developing a list of minority scientists who could act as seminar speakers and role models for the minority students; and 5) providing funds for other activities for minority undergraduates, such as, summer internships, travel to participate in cruises or field trips.